Image Processing Equipment for a Concurrent Digital Processing/Controls Laboratory

This project provides support for acquisition of image processing equipment to be used in concurrent signal processing/controls laboratories. The control systems laboratory is well-equipped and well-established while the undergraduate signal processing laboratory is a relatively new addition to the department and is currently being redeveloped to include a number of basic image processing experiments. This award will allow the acquisition of equipment to enable joint projects for students of both laboratories to work together in parallel efforts. The purpose of the project, then, is to teach young engineers how to collaborate with engineers with different specialties, to understand concurrent engineering, and to work well as a team under these circumstances.